Partial Support for Symposium on Formation and Control of Combustion Generated Pollution at the 1995 International Chemical Congress of Pacific Basin Societies-Pacifichem 1995

ABSTRACT 9528109 Wells A request has been made for funds to help defray registration charges and transportation costs for seven leading US combustion researchers who will give invited talks at a Symposium On The Formation And Control Of Combustion Generated Pollution. This symposium is part of the 1995 International Chemical Congress of Pacific Basin Societies to be held on 17-22 December 1995 in Honolulu, Hawaii. The aim this conference is to bring together experts from the Pacific Basin Countries to discuss many of the issues arising from combustion generated pollution. Specific sessions will deal with: (1) Fundamentals of pollution generation and destruction, (2) Laboratory and field measurements and (3) Novel control strategies.